U.S.-Argentina Cooperative Studies on the Mechanism of Action of Aldosterone in the Brain

9503716 McEwen This U.S.-Argentina Cooperative Research grant will support the collaborative research of Dr. Alejandro de Nicola of Argentina (Instituto de Biologia y Medicina Experimental) and Dr. Bruce McEwen of the U.S. (Rockefeller University) to investigate the role of Na,K-ATPase in the amygdala in the control of salt appetite in the rat caused by injections of deoxycorticosterone (DOC). The effects of the mineralocorticoid agonist, aldosterone, as well as the glucocorticoid receptor agonist, Ru 28362, on the amygdala and hippocampus will also be studied. The laboratories of both Drs. de Nicola and McEwen are well established and recognized for the high quality of research which has come out of them. The questions proposed generate much interest in the scientific community; in particular, the neural basis of steroid control of salt appetite in rats is recognized as an important problem. Both in Argentina and in New York, young scientists will be given an opportunity, as part of this grant, to participate in an important area of research in well-equipped laboratories. ***